CISE Research Infrastructure: A Networked Computing Environment for The Manipulation and Visualization of Geometric Data

CDA-9703080 Wolf, Lawrence Johns Hopkins University A Networked Computing Environment for the Manipulation and Visualization of Geometric Data This award is for the acquisition of an infrastructure for geometric computing providing a unified environment for five research laboratories in the Department of Computer Science at Johns Hopkins University (and one researcher at Brown University) having a large commonality in interests. This infrastructure will be used primarily as follows: The Center for Geometric Computation will be developing an interactive interface for geometric computation over the internet which will be used by the participating research laboratories and made available to other laboratories; the Computer Graphics Laboratory will focus on interactive visualization of large and complex geometric environments which also includes efficient utilization of network and distribute computing resources; the Computer Vision Laboratory is working on computational techniques for the visualization of the differential geometry of surfaces, visualizing and matching of signatures for Automatic Target Recognition, and real-time image understanding techniques for medical imaging; The Computer Integrated Surgery Laboratory will be conducting a number of projects in medical robotics including the development of techniques for minimally invasive surgery using navigation and guidance during neurosurgery and lung surgery, and, image and model registration techniques that use various 2D imaging modalities. The Natural Language Processing Laboratory will be studying document-space visualization in a high-dimensional space for information retrieval as well as clustering algorithms for high-dimensional word and document spaces.